Calculator Enhanced Instuction Project by an Expanded Consortium of New Jersey and Pennsylvania Educational Institutions

A consortium of two year colleges, four year colleges, and high schools in New Jersey and Pennsylvania are implementing a Calculator Enhanced Instruction Project. This project continues activities initiated with a previous NSF award. Through consortium workshops, faculty will plan teaching strategies involving calculators, following approaches developed at Clemson University. These approaches will be used throughout the calculus sequence, including linear algebra.